Dissertation Research: The Ecological Effect of Howler Monkeys

This will be one of the very first ecological studies to examine the role of primates in the regeneration of fragmented forests. Data collected in this study in central Belize on the ecological effects of the howler monkey will be used to test hypotheses concerning the relationship between the diet and activity patterns of these monkeys and seed dispersal and establishment and understory structure. The project will also result in the training of a new scientific professional